Augmented Holomorphic Bundles

DMS-0072073
Steven B. Bradlow

Holomorphic bundles arise naturally in many different
areas of geometry - indeed they lie at the intersection
of algebraic, symplectic, and complex differential geometry.
At the center of this intersection are sets of partial
differential equations, such as the so-called Hermitian-Einstein
and Vortex equations, which place constraints on the
geometric features of the bundles. Their solutions carry
information not only about the geometry of the bundles
on which they are defined, but also about their topological
and algebraic structure. In recent year it has been discovered
how by adding certain extra structure to a holomorphic
bundle, interesting new phenomena are revealed and important
applications can result. The primary goals of this proposal
include a fuller understanding of these `augmented bundles',
the equations defined on them, their moduli spaces, and their
applications.

Holomorphic bundles fall within the class of geometric objects
known as fiber bundles. In addition to their prominent place
in modern geometry, fiber bundles play an important role within
modern theoretical physics, where the influence of geometry can
hardly be overstated. General relativity, electromagnetism and
its extensions (known as gauge field theories), and string theory
could not be formulated without sophisticated geometric tools such
as vector and principal bundles.